NeTS NEDG: Dynamic Spectrum Access for Availability and Reliability

Historical static spectrum allocation has led to an artificial spectrum
scarcity, leaving no usable spectrum for future wireless networks.
Dynamic spectrum access is the ideal solution to break such scarcity and
make spectrum available to new wireless networks. However, without
providing proper reliability guarantees, dynamic spectrum access is
unacceptable to many networks and services. Thus, instead of focusing
solely on improving spectrum utilization, dynamic spectrum access should
provide reliable spectrum usage that meets network's individual needs.
This research develops SAFIRE, a robust architecture for dynamic spectrum
access that provides reliable and efficient spectrum usage to large wireless
networks. This research holds great practical values for wireless network
designers and service providers who rely on available and reliable spectrum
access to deploy and advance their networks.

Recognizing the fundamental tradeoffs between spectrum utilization and
reliability, this research focuses on efficient algorithms to meet
individual networks’ reliability requirements while improving spectrum
utilization. The investigators will develop statistical mechanisms to
proactively regulate spectrum demands based on their reliability requirements,
and apply distributed coordination and cross-layer design to quickly adapt
spectrum allocations and application patterns to network and spectrum dynamics.
To support large-scale dynamic networks, this research focuses on
computational-efficient mechanisms with minimum management overhead.
These advancements will help attract large commercial interests into
dynamic spectrum systems, facilitating their wide adoption. Finally,
the investigators will use this research as a basis to develop
interdisciplinary computer science training across both software and
hardware layers.